Plants in Evolution: The Fossil Record

PLANTS IN EVOLUTION: The Fossil Record Plants in Evolution: The Fossil Record involves the development of a wall chart and ancillary materials which depicts plant development over geological time. This material fills a void in the available material designed to tell the story of organic evolution. Prior attention among paleontologists has been largely devoted to the evolutionary development of animals. With the synthesis and use of the project materials, a more complete view of the changing array of life will be available. A teachers guide will be developed to aid secondary school teachers in the proper use of the chart, provide background material, and coordinate the chart content with textbooks which are usually available for high school biology.